MOREnet Expansion Phase 9

9521795 Mitchell This award adds two higher education institutions to the MOREnet state network: William Jewell College Cottey College Faculty and students at the institutions benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other campuses in pursuit of research and educational projects. The award provides partial support of the project for two years.